Social Networking in the FIRST Robotics Competition Community

FIRST will develop a roster of contributors and moderators for content development. These key individuals will set a high standard and expectation of quality to be present in all contributions made by the FIRST Community. One of the task associated witin the Social Networking in the FIRST Robotics Community Project will be a comprehensive study of social networking analysis theory and current applications of these theories to cyberinfrastructure.